Chemical Laboratory Education for Modern Students of Science and Engineering

A new Laboratory Process for the general chemistry program based on modern computer-interfaced FTIR, UV-VIS, and GC instrumentation will be implemented. The laboratory will be closely coordinated with the lecture and will enable science and engineering students to learn by the methods of practitioners. The laboratory will involve problem definition, hypothesis development, experimental design, hypothesis testing, and assessment and generalization of results. The grantee will match the NSF award from non-Federal sources.